Role of Structure and Dynamics of Molecules at the Interface in Controlling Friction, Adhesion and Adhesion Hysteresis

We propose to combine surface sensitive infrared-visible sum frequency generation
spectroscopy (SFG) with insitu friction and adhesion measurements. The experiments
are motivated by results of Chaudhury and Brown using poly (dimethylsiloxane) (PDMS)
lenses and Israelachvili using surface force apparatus; where they find a relationship
between friction, adhesion hysteresis and mobility of the molecules at the interface.
However, there is no information on how different relaxation processes are at
polymer/solid or hidden interfaces in comparison to that in bulk. Recent experiments of
glass transition temperature of polymer thin films indicate that the relaxation at the air
interface can be several orders of magnitude faster than in the bulk. The relaxation
times of polymer chains are expected to be altered in contact with surfaces of different
surface energies. Furthermore, there is no direct information of the change in the
structure of molecules at moving or sliding interfaces. Understanding these properties is
crucial to understand friction. Recently, we demonstrated that SFG can be applied to
study the contact interface between an elastomeric PDMS lens and a polymer or solid
substrate. Here, we take advantage of this design to measure simultaneously the
changes in structure between two sliding surfaces, friction and adhesion. In addition, we
propose to measure the relaxation dynamics at interfaces using SFG to understand the
relationship between mobility and friction coefficient. As a Director of District 5, I have
been actively involved in organizing District 5 Science Day for students from K5-K12 for
the past five years. In addition to this outreach activity, this proposal offers research
opportunities to two high school students from a local high school to work during
summer in my laboratory under the supervision of graduate students. The research of
these high school projects can be submitted as a part of their science project for
competition in the Intel Science and Engineering Fair. This effort will be integrated with
the NSF-REU undergraduate program already existing at The University of Akron.
Broader Impact: Friction between two surfaces is of utmost importance in a variety of
technological and biological applications. The understanding and control of these
phenomena will have a tremendous impact in conserving and using precious energy
resources. The advances in this field are limited by the lack of understanding of the
structure and properties of molecules at the interface. This proposal provides a new
experimental method to probe molecular motion or deformation taking place at the
interface and studies its relationship to friction and adhesion. This will broadly impact
our design of surfaces, lubricants and micro or nano-actuators. The education and
outreach activities target local schools in District 5 to promote an interest in science by
encouraging students to undertake science projects and compete at district, state and
international level.